ASU Engineering and Education: DET Expansion for K-12 Teachers

PROPOSAL NO.: 0230726
PRINCIPAL INVESTIGATOR: Crouch, Peter
INSTITUTION NAME: Arizona State University
TITLE: ASU Engineering and Education: DET Expansion for K-12 Teachers

ABSTRACT

The purpose of this study is to position the College Engineering and Applied
Sciences and the College of Education at Arizona State University for successful infusion
of Design/Engineering/Technology (DET) concepts throughout the complete range of
teacher education experiences, including pre-service and post-baccalaureate programs.
The project is led by the College of Engineering but includes the full participation of the
College of Education. A team of faculty and administrators from both colleges will
explore ways in which DET can be infused into all aspects of teacher education and
ultimately used to anchor instruction in science and math education. Part of the team will
design and teach a pilot course that will be used as a tool to conduct research and collect
the data needed to inform both engineering and education faculty on best ways of
incorporating DET concepts.

The goals of the project include 1) identifying curricular and pedagogical needs of
teachers and university faculty for implementing DET, 2) developing a DET-based pilot
course as a research tool for exploring DET in the curriculum, 3) crafting a set of
recommendations for a comprehensive implementation of DET in teacher education, 4)
developing models for the appropriate points in the professional development sequence
for DET, 5) determining the effectiveness of the pilot on instructional practices,
curricular choices and student understanding of DET and engineering careers, and 5)
developing models that extend DET to pre-service education through methods classes
and general education courses.

The intellectual merits of this planning grant include a re-conceptualizing part of
the science and mathematics component of teacher education and bringing technological
design, as addressed in the standards, to the forefront of k-12 science and mathematics
instruction.